Measurement and Analysis Laboratory Improvements

The Mechanical Engineering Laboratory at the university has the primary responsibility for introducing mechanical engineering undergraduates (nearly 55 percent all engineering majors) to the measurement and analysis of physical properties. This one semester laboratory is a hands-on experience. It offers each of the undergraduates an extensive exposure to basic issues of measurement and experiment in the areas of dynamics, fluid mechanics, statics, and thermodynamics. While it is imperative that students continue to be directly familiar with the fundamental aspects of mechanical measurements, it is believed that more needs to be done to educate them for the current state of experimentation in industry and academia. This project augments the Mechanical Engineering Laboratory structure with the following equipment: motion sensors and signal conditioners, power supplies, oscilloscopes, data acquisition boards, IBM-compatible 486 personal computers, and data analysis software.